An International Conference on Infrared Astronomy with Arrays: the Next Generation on the UCLA campus from July 18-23, 1993

Department of Astronomy and Physics at the University of California, Los Angeles (UCLA), in collaboration with Caltech and JPL, propose to hold a timely conference entitled Infrared Astronomy with Arrays: the next generation on the UCLA campus from July 18-22, 1993. Infrared array detectors have been in widespread use for only 5 or 6 years, but already their impact on infrared astronomy has been tremendous. Efforts to design and construct even better IR arrays with larger formats have also continued at a rapid pace. By the date of the proposed conference, many infrared instruments using arrays with up to 256x256 pixels will be in operation. The UCLA meeting will bring together, in a unique forum, astronomers, technologists and IR array manufacturers, to see and hear about the exciting science that is already being done, to exchange knowledge on methods of operation and data reduction, and to discuss future prospects in the era of very large ground- based telescopes, Antarctic astronomy and space missions dedicated to infrared science. Equally important, the conference will produce direct interactions between developers and a large, and growing, number of users and will serve to focus the concern of the community on funding detector improvements and ensuring availability of future supplies at this critical juncture. This meeting, although aimed primarily at ground-based infrared astronomy, will capitalize on the synergism with space-based applications. The conference will be modelled on the successful "turning-point" workshop held in March 1987 in Hilo. The conference is timely since it has been three years since the most closely related event.